2002 Gordon Research Conference on Catalysis

Abstract

Proposal Title: 2002 Gordon Research Conference on Catalysis
Proposal Number: CTS-0210083
Principal Investigator: Jingguang Chen
Institution: Gordon Research Conferences

The Gordon Conference on Catalysis (GCC) in 2002 will be held on June 23-28 Colby-Sawyer College in New Hampshire. The conference will focus on several areas that are key to the fundamental understanding of catalytic systems: molecular level characterization of catalysts, quantitative descriptions of reaction pathways, novel materials, fuel cell catalysis, chiral catalysis, and the conversion of nitrogen oxides in combustion products. The themes and speakers are of interest to both academic and industrial communities. Current and future trends in heterogeneous catalysis will be the general theme. This grant will provide partial support for speakers, graduate students, post-doctoral students, and younger faculty.